RCMS: Research Careers for Minority Scholars at Brown University

9450319 Wyche Brown University proposes to expand its Summer Research-Early Identification Program (SR-EIP) in the biomedical sciences to a year-round research and career oriented experience for highly motivated Brown underrepresented minority students in the life sciences and engineering. The program, Research Careers for Minority Scholars (RCMS) at Brown University, will involve talented students from the freshman through senior year and expand the career options for those students during the four-year period of the proposal. Students will be matched with faculty sponsors who will provide mentorship, guidance, and a first-rate research environment starting in the freshman year. During the summer following the freshman year, students will participated in a nine- week program comprising a continuation of the research experience, seminars and field trips, weekly research colloquia by Brown faculty and outside speakers, and visits to industrial companies. During the junior and senior year, students will be encouraged to apply to Brown's Ph.D. programs and to other highly selected graduate schools. One measure of the RCMS experience's success at Brown will be the number of recruits to graduate degree programs. The program's goal will be to produce a minimum of 15 pre-doctoral candidates by the year 2000.